Conference: NSF/MCB CAREER Awardee Conference

NSF CAREER awards support early career faculty who integrate their research and educational efforts, investing in their development as leading scholar-teachers in their fields. Building on the success of past Division of Molecular and Cellular Biosciences CAREER Awardee Conferences since 2019, the 2023 meeting will bring together a diverse cohort of awardees to foster cross-disciplinary interactions and build a community to advance molecular and cellular scale understanding of complex biological systems.

The goals of the conference are to facilitate knowledge sharing and catalyze collaborations among early-career faculty who span a broad range of research and educational expertise, and to provide input to the NSF on new research frontiers in molecular and cellular biosciences.